Calculus Reform in Liberal Arts College

A calculus curriculum is being developed that stresses understanding rather than techniques, contains realistic applications, and promotes the ability to write coherent arguments. This development is being carried out with the participation of twenty-six liberal arts colleges in the Midwest and takes the form of five Resource Collections containing fundamental materials that can be used in part or in total for curriculum development in calculus at any institution. These collections are to be published as five separate volumes.